Acquisition of Equipment for Optoelectronic Devices Laboratory

This equipment will be used for the accurate coating of semiconductor laser facets. This is important for at least two reasons: to enhance the purity of the emitted radiation in terms of its emitted color, and to achieve a smooth tuning of the laser output in terms of color.